Flame Structure and Kinetics in Chlorinated Hydrocarbon Combustion

This program is a continuation of an on-going research project in the area of flame structure and kinetics in the combustion of chlorinated hydrocarbons (CHCs). In the first half of this program, the research will involve modifying an existing burner setup to study CO flames in the presence of HCl and CH3Cl; both premixed and nonpremixed flames will be studied. Velocity, temperature, and species concentration fields will be measured via laser diagnostic procedures. In addition, numerical simulations for validation of the existing CO reaction mechanisms in the presence of HCl and CH3Cl will be carried out, with modifications to previous chloromethane work being re-examined. With the new flame structure measurements obtained with the expanded diagnostic procedures, comprehensive comparisons will be made between numerics and experiments. In the second half of the program, the research will involve studies of the influence of higher Cl/H ratios on global flame characteristics and flame structure using mixtures of chloromethane, dichloromethane, trichloroethylene, oxygen, and nitrogen. Under these highly chlorinated conditions, the existence of two-stage flame structures will also be examined in premixed and nonpremixed flames, again through non-intrusive mapping of the flame structure. Finally, the tendency of soot formation will be investigated in detail and possible control approaches examined. The experimental results are anvicipated to provide a basis for validation of detailed reaction mechanisms employed in the numerical simulation of flame structures. Such comparisons should provide useful insight into the oxidation mechanisms of CHCs. In addition, through identification of the important species and reaction steps via sensitivity analysis, simplified, reduced mechanisms can be developed to describe the chemistry of CHC flames; these reduced mechanisms will enable incorporation of realistic finite-rate chemistry models into simulation of turbulent and/or three-dimensional flame structures found in incinerators, with ultimate development of design capability for safe, optimal incinerator operation.